CRI: Enabling Globally-Distributed Electronic Collaboration (GloDEC) for Expertise Studies and Human and Social Dynamics Research Planning Grant

Abstract
Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Enabling Globally-Distributed Electronic Collaboration (GloDEC) for Expertise Studies and Human and Social Dynamics Research Planning Grant
Proposal: CNS 0452180
PI: Becerra-Fernandez, Irma
Institution: Florida International University

Florida International University will use this planning award to evaluate feasibility and expansion of its knowledge management lab to support studies in collaborative expertise and human and social dynamics. Emphasis will be on expanding research programs in expertise in collaboration with other Florida universities, on understanding through computer models how components of expertise interact with social, communication and organizational structures, and on developing linkages between these two areas. Specific planning activities will explore inter-university PhD education and research, assess and recommend technology infrastructure for their needs, and plan an implementation for a student-centered collaborative, electronic learning community. Broader impacts include the potential for impact on education programs in management information systems. Florida International University has the largest contingent of Hispanic students among US doctoral granting institutions who can benefit from this innovative program.